A Manufacturing Hand: Understanding the Process of Manipul- ation for Manufacturing Tasks

The goal of this research is to develop a cost-effective robotic manufacturing hand. The hand will be equipped with local sensing and be capable of coordinated manipulation and control. This research has three work tasks: knowledge representation, kinematics and control of manufacturing manipulation, and construction of manufacturing hands and application on a machining center. The knowledge representation work task is of the activities of an expert mchinist and will be accomplished with photographs, videotapes, and at-machine interviews with skilled machinists.